Learning Generalized Horn Sentences

This research addresses the learning of a concept class in the exact learning model. This concept class, the set of k-quasi Horn sentences, has crucial significance in both models: it is known that if k-quasi Horn sentences are shown to be learnable in the exact learning model, then (under some general cryptographic assumptions) the large class of conjunctive normal form sentences are predictable in the PAC model. Partial research has shown that k-quasi Horn sentences are indeed learnable when the exact learning model is augmented with somewhat more power. This line of research will be continued to obtain a definitive answer about the learnability of k-quasi Horn sentences in the exact learning model.